International Research Fellowship Program: The Basis of the Irradiated Sporozoite Vaccine: Identification of Plasmodium Genes Essential for the Development of Liver Stages

0202606
Agrawal

The International Research Fellowship Program enables U.S. scientists and engineers to conduct three to twenty-four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad.

This award will support a twenty-four month research fellowship by Dr. Alka Agrawal to work with Dr. Robert Menard at the Pasteur Institute in Paris, France.

This project will involve the study of the basis of the irradiated sporozoite vaccine, which remains the most effective malaria vaccine to date. Irradiated sporozoites are able to infect liver cells, but in the liver they fail to develop into stages of the parasite that later infect red blood cells. The PI will develop a technique for identifying genes in P. berghei, a species that infects rodents, that are essential for parasite differentiation in the host liver. She will then test the defective mutants for their ability to serve as attenuated malaria vaccines. The expectation is that a number of genes will be found that are essential for parasite development in the liver, as well as parasite mutants that could serve as attenuated vaccines or the starting point for new vaccines.

The Pasteur Institute is well known for its focus on infectious disease and has several investigators working on malaria.